Almgren's multiple-valued functions and geometric measure theory

Abstract

Award: DMS-0905347
Principal Investigator: Wei Zhu

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

These research projects concern the interaction of geometric
measure theory and partial differential equations. Particular
projects will study stationary-harmonic multiple-valued
functions, frequency and branch sets of multiple-valued
functions, and regularity of integral varifolds. Work on these
problems will address some longstanding questions in geometric
analysis such as boundary regularity of area minimizing integral
currents in general codimensions and the singularity estimate of
integral varifolds under natural assumptions on the mean curvature
or the second fundamental form.

Some of most useful and significant classes of submanifolds in
geometry arise are characterized as critical points of natural
energy or area functions. For example, surfaces formed by soap
bubbles are critical points of the mean curvature functional,
while geodesics (shortest paths) are critical points for the
length functional. Geometric measure theory offers powerful
tools for establishing that critical objects exist by expanding
the class of allowable objects from surfaces to generalized
surfaces. These methods often leave open questions of
regularity, or smoothness, of solutions, and those issues are
emphasized in these projects.